Interactions of homotopy theory and algebra

The project has three components, all concerning new interactions
between algebra and topology. In the first component, the
investigator will explore the role of orthogonal Grassmannians in
motivic homotopy theory. The focus will be on their relationship with
Hermitian K-theory and on their motivic cohomology, the latter being
related to motivic characteristic classes for quadratic bundles. One
goal will be to geometrically construct such classes and to
investigate their basic properties. In the second part of the project
the investigator will explore (with D. Biss and D. Isaksen) spaces of
zero-divisors in Cayley-Dickson algebras, in an attempt to completely
classify these. This may eventually have applications to the Kervaire
invariant one problem, and this will be explored. Finally, the
researcher will continue joint work with B. Shipley which studies the
relationship between differential graded algebras and ring spectra.

The last ten years have seen the discovery of many new, surprising
ways in which topology and algebra interact. Historically, algebra
has always been used to give information about topology; but what is
amazing about recent developments is that they often use topology to
give information about algebra. This project focuses on three
instances of this. The main component of the research involves
motivic cohomology, which is a very exciting area that is growing
quickly. At its core, it involves the application of topological
techniques to the study of systems of polynomial equations. The
objective of the project is to study the motivic cohomology of certain
basic objects which are well-understood from a topological viewpoint,
and to investigate how the algebra and topology interact in these
important examples. The results should be very important for the
further development of the field.